Acquisition of a Computer System for Research in Geodynamics

This award provides 50% funding for the acquisition of a computer system to be installed in the Department of Geology and Geophysics at the University of California, Berkeley. The University of California is committed to providing the remaining funds needed. The primary use of the computer system will be in numerical modeling of convection and flow in the Earth's mantle and related geodynamic processes.